The geometry, topology and asymptotics of the word problem

The proposed research is in Geometric Group Theory, specifically on
problems pertaining to the geometry, topology and asymptotics of the
word problem, particularly along avenues initiated by Gromov in his
seminal book "Asymptotic Invariants of Infinite Groups." A first
direction concerns isoperimetric and filling length functions, a
meeting point of geometry and algorithmic complexity. Examples of
problems for attack here are whether Cohen's Double Exponential
Theorem is sharp, and to establish long standing claims of Thurston
about isoperimetric functions of the Special Linear Groups. Also
addressed in the proposal is a question of Gromov about the uniqueness
of a limit of a group viewed from increasingly distant vantage points
(an asymptotic cone); a line of attack is being pursued in
collaboration with M.R. Bridson. Another area is the "grammar of the
Word Problem", where geometry meets linguistic complexity. The P.I.
proposes to investigate the combings of nilpotent groups as well as
applications to the Andrews-Curtis Conjecture. The proposal includes
collaborative work and it is anticipated that the inter-disciplinary
nature of the work will enable additional collaborative efforts both
in the United States and abroad.

The Word Problem was posed by Max Dehn in 1912, who presciently
described it as a "fundamental problem whose solution is very
difficult and which will not be possible without a penetrating study
of the subject." The Word Problem for a group (a fundamental
algebraic object capturing symmetries) asks for a systematic method
(in modern terms, an algorithm) which, given a finite list (a "word")
of basic symmetries (distinguished group elements known as
"generators"), declares whether or not their product is the identity
(the trivial symmetry that moves nothing). One of the crowning
achievements of 20th century mathematics was the construction by Boone
and Novikov of groups for which no such algorithm can exist. However,
that is by no means the end of the story. The Word Problem transcends
its origins in algebra, decidability and complexity theory, and turns
out to be a bridge to geometry and topology, as well as to linguistic
complexity. To a group we can associate a topological space and vice
versa. Recognising a word to be trivial amounts to spanning a loop
with a disc in a corresponding space, and geometrical features of this
disc (such as area) translate to algorithmic complexity measures (such
as time) of the Word Problem. Moreover, words over a group form
grammars whose linguistic features relate to the ease of navigating
around the corresponding space. Thus there are tantalising links
between minimal surfaces (soap films) and algorithmic complexity, and
between geometry of spaces and grammars. These are the connections
the P.I. proposes to develop and exploit.